ITR: A Data Driven Environment for Multiphysics Applications

EIA-0205663 University of Colorado Charbel Farhat ITR: A Data Driven Environment for
Multiphysics Applications

The objective of this project is to enable an efficient prediction capability for the response of multiscale interdisciplinary continuous interacting systems. This will be done by an effective union of information technologies, coupled multiphysics sciences, and automated massive experimentation for data gathering to steer adaptive modeling of the observed systemic behavior.